RUI: Contribution of ACTH Residues to Receptor Binding and Activation

9318215 Krueger Humans and other animals use the peptide hormone ACTH to adapt to stress. ACTH is released by the pituitary gland and travels in the blood to the adrenal glands, where it binds to receptors on the adrenal cell surface. This binding stimulates steroid hormone (cortisol) production by the adrenal cells. Cortisol helps the body cope with stress. The focus of this project is to determine how the different parts of the ACTH molecule bind to and stimulate the receptor on the surface of the adrenal cell. Peptides are composed of amino acids, and the contribution of the side chains of the individual amino acid residues will be measured. This will be accomplished by comparing the receptor binding and stimulation properties of the normal ACTH peptide with a series of synthetic ACTH peptides that have only a single hydrogen atom substituted for the normal, larger side chain at a specific amino acid site. By comparing the properties of the normal and synthetic peptides, the contribution of each specific amino acid side chain to receptor binding and activation will be determined. The information obtained will provide an accurate and detailed molecular model hormone-receptor interaction. ***